Integrated Schottky Front-Ends for Millimeter-Wave Wireless Applications

9979357
Weikle

The primary goal of this program is the development of fully-integrated Schottky receiver and transmitter front-ends for wireless applications at submillimeter-wave frequencies. Schottky diodes represent the most successful device technology for room temperature heterodyne receivers and harmonic generators at frequencies above 150 GHz and this project aims at developing a reliable and robust device technology base for submillimeter-wave wireless systems by applying MMIC processing technology to Schottky front-ends. The scope of the project incorporates three main tasks: (1) the development of a processing technology for diode-based monolithic millimeter-wave integrated circuits (MMIC's), (2) the use and integration of electromagnetic and device simulation tools for IC transceiver design, and (3) the application of diode-based MMIC's to the design and realization of fully integrated transmitter and receiver front-ends operating at submillimeter-wave frequencies. The project will culminate in the demonstration of a fully integrated communications link operating at 220 Ghz.
***